CAREER: Engineering Circular Hydrocarbon Reactions in Zeolite-based Catalysts

Chemical processes that breakdown plastic waste and remanufacture the deconstructed products to valuable fuels and chemicals are attractive alternatives to fossil-fuels for hard-to-decarbonize sectors such as aviation fuels. Such plastic upcycling is especially valuable when it can be achieved at moderate temperatures in energy efficient processes. Catalysts offer a route to that end by lowering reaction temperature and selectively directing conversion of plastic to products that serve as building blocks for a broad range of fuels, consumer goods, pharmaceuticals, and building materials, to name a few. Zeolites are a class of porous crystalline catalysts that are especially suitable for waste plastic deconstruction, but further research and development is needed to improve their efficiency, product selectivity, and durability. Thus, this project investigates key design factors that affect the overall effectiveness of zeolite catalysts for the breakdown of a prevalent class of waste plastic, polyolefins. The project is supported by integrated educational and outreach activities aimed primarily at undergraduate and graduate students.

While catalysts are ubiquitous in the production of fuels and important chemical intermediates, the design of advanced catalysts that possess high reactivity, selectivity, and stability remains paramount for efficiently and sustainably abating pollution while lowering energy demands and decreasing carbon emissions. Here, this rational design is employed in the hydrocracking of polyolefins using bifunctional metal/zeolite catalysts, where zeolitic voids simultaneously provide high reactivity and tailored selectivity, but limit catalyst efficiency and stability due to diffusional constraints of bulky products. Hierarchical zeolites with hybrid pore structures can be utilized to address this inaccessibility of bulky polymer molecules, but the direct effect on reaction and deactivation mechanisms, especially of these complex multiphase systems is not well-established. The project thus aims to engineer hierarchical (bifunctional) zeolites in selective hydrocracking of waste polyolefins, based on hypotheses that enhancements of hierarchical structuring affect reaction and deactivation rates for polyolefin cracking beyond simple diffusional impacts and include effects of pore structure (i.e., zeolite framework), connectivity, communication (metal:acid balance/proximity) and reactions occurring within the mesoporous regions and surface protons. By combining synthetic protocols with detailed reaction pathway and deactivation analysis, the project will reveal new insights on how shape-selectivity and transport phenomena affect the performance of these hierarchical, bifunctional catalysts for transformation of waste polyolefins into useful products. Those insights will aid in understanding the entire catalytic lifecycle, including specific mechanistic details that can be extended to improve catalyst efficiency for reactions of various feedstocks related to hydrocarbon and oxygenate processing (i.e., biomass, renewable alcohols, or CO2) and different zeolite or zeotype architectures. Research results from this award will be proactively incorporated into an undergraduate elective entitled Green and Catalytic Chemistry that will incorporate interactive components like hands-on catalysis (plastic upcycling and aqueous pollutant degradation) and separation (CO2 capture) experiments, and “Sustainability Spotlights” based on media articles covering energy and climate related topics. The project will also strengthen the broader catalysis community through “CatChats” for younger graduate students in catalysis labs at various universities. These meetups will create a supportive network of peers, via initial virtual connections that will be expanded at conferences, workshops, and other in-person venues.